SBIR Phase II: AI-DRIVEN PERSONALIZATION FOR SCALABLE CUSTOM-FIT FOOTWEAR

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II
project addresses the limitations of mass-produced footwear sizing by introducing size-inclusive bespoke custom-fit shoes. Poorly fitted footwear is an increasingly costly and painful problem with growing human, economic, and environmental implications.
Incorrect footwear fit is a significant driver of foot pain and disorders, including toe deformities, corns,
foot ulceration, and ankle pain. Additionally, e-commerce is on the rise, wherein up to 40% of shoes
purchased online are returned with poor fit as the biggest driver. These reduce retail margins and increase
footwear’s carbon footprint. Custom-fit shoes can solve the problem of poor fit; however, traditional
custom-fit is a labor-intensive process. Advancements in artificial intelligence can modernize and scale
custom-fit shoe manufacturing, potentially reducing price points and lead times.

The proposed project aims to implement an automated solution for custom-fit footwear with three methods: (1) smartphone-based foot scanning and fit survey to obtain foot measurements and footwear construction preferences utilizing artificial
intelligence, (2) automation of shoe last personalization, and (3) adaptive shoe componentry for custom-fit shoe construction.
The project utilizes artificial intelligence and machine learning, 3D modeling, computer vision, and 3D manufacturing to: (i) develop and deploy a highly accurate virtual foot image-to-measurements machine learning model; (ii) expand a shoe
last library to train and implement a machine learning model for foot measurement-to-shoe last
prediction; (iii) manufacture custom-fit shoes by combining personalized last with a compatible adaptive
sole; and (iv) establish a customer feedback system for iterative shoe modification by incorporating user
qualitative responses and sole wear patterns.